CCHDO: serving easily accessible, global, high-quality hydrographic data for research, climate monitoring, and education

This project supports continued operation of the oceanographic data facility that aggregates, standardizes, documents, and disseminates high-quality full-water-column Conductivity-Temperature-Depth (CTD), hydrographic, carbon, and tracer data. The facility curates data from over 2,500 oceanic research expeditions as the official data center for the Global Ocean Ship Based Hydrographic Investigations Program (GO-SHIP), a key component of both the Global Climate Observing System and the Global Ocean Observing System. The data are made available for a range of purposes related to research and education. For example, data are used for assessment of the state and health of the ocean and for verification of ocean models. In addition, project outcomes will include learning modules for undergraduate and graduate students and improvement of ocean informatics.

The project ensures that valuable oceanographic data and their associated documentation are readily available for research and education and accessible through several search and download sites. The data are fed into global data sets (such as the World Ocean Atlas) and archived for long-term preservation. The approaches include meticulous verification, assembly, and documentation to produce standardized, well-described, reference-quality research cruise data products from heterogeneous data submissions. The goal is to maximize data useability for the scientist community and ensure a long service life.